RPG: Characterization of Pseudotachylyte Formed in an Extensional Tectonic Regime

This action provides funds for Research Planning Grant to study pseudotachylyte formed in an extensional tectonic regime. Pseudotachylyte is more commonly studied in compressional, transpressional or strike-slip regimes, and this study will characterize features of pseudotachylyte from the extensional Southern Mountains of Arizona. Results will be applied as a foundation for later, more detailed studies.